Oceanographic Instrumentation for the R/V Endeavor: 2006

0602306
Dickson
This award to University of Rhode Island's Graduate School of Oceanography provides instrumentation to improve the oceanographic research capabilities of the research vessel Endeavor, an NSF-owned ship operated by URI as part of the University-National Oceanographic Laboratory System research fleet. The electronics for the opening-closing plankton sampling system, water bottles and scientific sample storage freezer will replace aging systems with modern ones, maintaining state of the art capability for researchers using the ship. These improvements will be of substantial advantage to marine scientists using R/V Endeavor and other vessels in their research during 2006 and future years.
***